Computer Equipment to Expand Meteorological Interactive Computing Capabilities for Education and to Augment UNIDATA's Internet Data

Abstract ATM-9527097 Richard D. Clark and Russell L. DeSouza Millersville University UNIDATA: A Computer Equipment Request to Expand Meteorological Interactive Computing Capabilities for Education and Augment UNIDATA's Internet Data Distribution Center. Funds will 1) expand the present meteorological interactive computing capabilities which extensively employ UNIDATA-supported software and 2) enhance and augment the UNIDATA Internet Data Distribution (IDD) system by serving as a relay and/or archiving sight. The requested workstations, and others presently on hand from previous NSF/UNIDATA awards, will become part of the local area network supported and maintained by the meteorology program in two teaching labs and a research lab.